Membranes with Chained Carriers

The proposed research is focussed on the synthesis and development of active site chained carrier membranes for selective separations. Such membrane materials with attached active mobile reactive groups offer a selectivity approaching that of liquid membranes along with the stability exhibited by solid polymer membranes. This approach offers the potential for exceptional separation possibilities by this marriage of the characteristics from both liquid and solid systems. The work will specifically investigate the potential for two different membrane systems. One, a polymer molten salt preparation from an industrial source, will be applied to separate ammonia from its synthesis constituents, nitrogen and hydrogen. The second, a solid film copolymer has the potential for high copper selectivity over calcium and sodium and, thus, can be extremely significant for industrial applications. The experimental effort here will be compared with a refined chained carrier transport theory already under development.